Dynamic Systems and Control Division (DSCD) Student Travel Grant: 2002 International Mechanical Engineering Congress and Exposition (IMECE)

The purpose of this project is to provide financial assistance to
engineering students to attend the 2002 International Mechanical
Engineering Congress and Exposition (IMECE), sponsored by the American
Society of Mechanical Engineers (ASME) International. The focus of the
conference will center around theoretical issues, engineering
methodologies, and industrial applications in various areas of Mechanical
Engineering, including Dynamic Systems and Control. The primary goal of
this project is to expose students to current advances in Dynamic Systems
and Control. Furthermore, it is hoped that DSCD Student members will
become and maintain active participation in ASME DSCD activities. As
part of a new initiative of the ASME Dynamic System and Control
Division (DSCD), the PI will organize travel support for DSCD
student attendees, in the form of IMECE 2002 Student Travel Grants.
These grants will be advertised nationally.